Nonlinear Optimization: Algorithms, Software, Applications

Nonlinear programming (the minimization of a smooth nonlinear function subject to smooth
(possibly) nonlinear constraints) is a touchstone problem in optimization. The problem continues
to excite strong interest among optimization researchers for many reasons, among them new
developments in algorithms and software (especially of the interior-point variety), the study of
mathematical programs with equilibrium constraints (MPEC), and the discovery of new application
areas.
The broad scope of the nonlinear programming paradigm admits a great many pathologies in
the geometric nature of the problem and in its algebraic speci.cation. It is impossible to design
algorithms that converge reliably in all circumstances. Local convergence theory for most algorithms
depends on regularity and strict complementarity assumptions, and problems for which
these assumptions are not satis.ed (degenerate problems) are the cause of undesirable and awkward
behavior in most algorithms and codes.
This project will investigate some approaches to nonlinear programming, related to approaches
currently in use, that have the potential for improved performance on degenerate and large-scale
problems. These techniques will be theoretically rigorous and practical, in that the marginal
computational cost of handling degeneracy will not be too great and in that they will behave well
even when implemented in .oating-point arithmetic. Particular attention will be given to MPECs,
which exhibit degeneracy of a speci.c type. Extensions to degenerate complementary problems
and variational inequalities will also be investigated. Special attention will be paid to the numerical
aspects of implementing these algorithms, an important issue because of the ill conditioning that
may be present in the subproblems at each iteration. All this research will be carried out in a
coordinated manner, coupling theoretical advances with computational experiments using both
prototype software and modi.cations to production software.
Work on applications of nonlinear programming, performed in collaboration with domain scientists
and engineers, will be the second key contribution of the proposal. Interdisciplinary research of
this type plays a key role in any research program in algorithmic optimization. The PI has ongoing
collaborations in such areas as engineering control, statistics, and cancer treatment planning.
The intellectual merit of the proposed work lies in improvements to our understanding of
nonlinear programs and of the algorithms that solve these problems, in the construction of better
algorithms and software that are robust in the face of degeneracy, and in the impact of these
advances on many application areas including those described in the proposal.
The work will have a wider impact on users of optimization technology, ultimately bene.ting
many of those who use optimization software packages to solve problems in an extremely wide
range of applications. Domain scientists and engineers in the areas highlighted in the proposal will
bene.t especially.